Research Experience for Undergraduates

This award proves funds to establish a biotechnology-oriented Research Experiences for Undergraduates (REU) site at the University of Nevada, Reno to serve 10 students, 5 from UNR and 5 from other institutions. The program will help the students realize their own potential as research scientists by introducing them to laboratory research and giving them insight into the training needed for such a career. Target groups include women and minority students and non-UNR students who have had little exposure to laboratory research. Funds are included to hire a Minority Affairs Consultant in order to increase success in identifying, recruiting and retaining these students. The program is modeled after a 10 year old High School Science Scholars in Research Summer Program (sponsored by the university, private groups, USDA, and NIH). The REU students (college juniors or seniors) will work for 10 weeks at the University of Nevada, Reno on molecular biotechnology research projects chosen by them, but designed by biochemistry and molecular biology faculty members. Biweekly discussion groups will be held to cover: selection of and application to graduate programs, financial incentives for graduate studies, opportunities available in biochemical and molecular biology research and what it's like to be a scientist. Speakers will include scientists from under-represented groups. Students will be selected on a regional basis with room and board provided for non-local students. The program culminates with a one-day retreat at which oral and written reports on the summer's activities will be given. Students, faculty and staff will also discuss the educational and career opportunities. Follow-up of the REU students will be done by phone calls and, where practical, by visits to the students' campuses.